Computer Based Control and Operation of a TRIGA Nuclear Research

A minicomputer will be acquired to replace and update the present control system of the TRIGA reactor. The computer-based-controlled system will be designed to be licensable under U.S. Nuclear Regulatory Commission requirements, and will also serve as a reactor management and data processing system for this research reactor by controlling or monitoring sample irradiation times, neutron and gamma fluxes, and data reduction for most of the R&D efforts related to the TRIGA reactor. The computer-control system would improve data quality, accelerate research investigations, and expand the research base and funding generated by the reactor.